NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1998

Abstract DBI-9803892 Edward M. Driggers This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1998. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled directed evolution of enzymes that accelerate environmentally important reactions. Enzymes that cleave ether bonds are being changed into a novel enzyme which cleaves methyl-t- butyl ether (MTBE), an environmental contaminant. The natural substrate is being modified incrementally to resemble the MTBE target, allowing identification of catalysts that are increasingly suited to cleave MTBE from libraries of the original enzyme.